Predator Identity and Trophic Control of Biodiversity and Ecosystem Function

Predators have long been valued for their role in controlling outbreaks of
insect species that can inflict considerable damage to their specific host
plant species. Ecological science is now theorizing that by protecting
plants from damage, predators may play an even more critical role in
ecosystems than previously thought. Different predator species prefer
different kinds of insect prey. Such preference may steer which
combinations of plant species (biodiversity) survive in an ecosystem. The
level of plant biodiversity, in turn, can impact the level of important
ecosystem services like the breakdown of organic matter and cycling of
important nutrients such as nitrogen, which then feeds back to influence
the production rate of living plant tissue. This study will experiment
with different spider predator species and grasshoppers in a grassland
ecosystem. It will test the hypothesis that each predator species will
uniquely affect grasshoppers which, in turn, uniquely affects the
composition of plant species and the level of ecosystem services. In
addition, it will measure how individual predator species effects on the
ecosystem add up. The study will hold different predator species,
individually and in combination, in experimental field plots and measure
the abundance of grasshoppers, the abundance of naturally occurring plant
species, and the rates of organic matter (plant leaf litter)
decomposition, nitrogen cycling and plant production. The study will help
to increase the precision of biological control measures by identifying
which combinations of predator species best achieve desired levels of
plant species diversity and plant production in grassland ecosystems.